Support for the 2008 Annual Meeting of the Society for Mathematical Psychology

This award will provide partial support for the 41st Annual Meeting of the Society for Mathematical Psychology to be held in Washington, D.C. on July 26-29, 2008. The Society for Mathematical Psychology conference encourages the presentation of research in which mathematical, statistical, or simulation methods play a significant role in the development of hypotheses or the interpretation of experimental results in the behavioral, neural, and cognitive sciences. In addition, accepted research papers focus on theoretical developments clearly relating to substantive issues or methodologies of obvious use in psychology, cognitive science, cognitive neuroscience, and related areas and/or experimental results which bear directly on particular mathematical or simulation models of aspects of human behavior. This year's conference themes include: (1) cognitive decision theory; (2) causal modeling; (3) computational linguistics; and (4) psychometric assessment.

Mathematical psychology brings together social scientists, statisticians, mathematicians and computer scientists to work on problems critical to behavioral scientists. Much transformational research has come from the mathematical psychology community, including mathematical models of brain function, memory, and decision-making, as well as the introduction of new methods for data analysis. While mathematical models improve our understanding of human behavior and provide formal structures for future scientific exploration, new and better methods for data analysis allow us to derive more accurate and nuanced conclusions from behavioral data. The annual meeting of the Society advances discovery and understanding. It promotes training and learning of new models and methods for analyzing behavioral data and it makes possible the broad dissemination of new findings important in all areas of psychology, as well as economics, political science, and sociology.